Ablation Plasma Ion Implantation

ABSTRACT

CTS-9907106
Ronald M. Gligenbach

This is an investigation of a new ion source for implantation and synthesis of materials from solid targets. In this new technique, ablation plasma ion implantation (APII), energy-beam ablation of solid targets (metals, ceramics, or semiconductors) is used to generate pulses of ions for implantation, ion-assisted deposition, or synthesis of compounds. This study aims at development of a knowledge base on APII and the definition of scaling laws that can be used to evaluate engineering applications. The primary ablation source used is a KrF excimer laser operating at 50 Hz; other ablation sources available for comparison include e-beam, XeCl laser and YAG laser. Laser and optical diagnostics are applied to characterize the ablation plume species, the densities and energies of electrons , atoms, and ions, and the behavior of the sheath.